Aeronautical Instruction Laboratory

This project enhances the aeronautical instructional capability at this institution. Students are exposed to the phenomena associated with aeronautical design and analysis through experiments using a highly instrumented wind tunnel. The wind tunnel is sufficiently large to produce flow conditions that allow wings which utilize modern airfoil sections (e.g., NASA General Aviation section) to behave properly and instrumentation of the wind tunnel that causes minimal interference with flow over the models. Students in the aeronautical option who utilize this lab are prepared for industrial careers in the field of aeronautical engineering. This award is being matched by an equal sum from the grantee.